Acquisition of Computational Steering Instrumentation

9512241 Henderson The proposed project is to acquire an SGI Power Onyx graphics engine front end, and a SGI Power Challenge computational engine for large-scale computational steering. Computational steering permits users to interactively change boundary conditions, model geometry, and computational parameters via a graphical user interface. It allows the visualization to guide or steer the design and computation phases of the simulation or computation. The computational steering model is applicable to a wide range of applications including medicine, genetics, image analysis, CAD/CAM, telerobotics, and virtual reality. Software is being developed in different application areas to "close the loop" to replace the typical simulation model in which the user manually sets input parameters, computes results, stores data, visualizes the results via a separate visualization package, and then starts again at the beginning. The proposed equipment will permit interactive modeling and scientific visualization supported by parallel computational systems. ***